NMR Across the Curriculum

A Varian Gemini-200 nuclear magnetic resonance spectrometer is allowing more emphasis on the use of carbon NMR in the sophomore organic laboratory, introducing NMR kinetic experiments into the physical chemistry lab, and expanding the educational impact of the instrumental analysis and spectroscopy courses. In addition the undergraduate student research is being significantly improved. The American Chemical Society's Committee on Professional Training has emphasized the importance of introducing the students to modern instrumentation and the challenge of research as early as possible in their studies in order to attract students to chemistry and to better prepare them for a career in the chemical sciences. The superconducting NMR is adding a new dimension to and injecting excitement into the program. The grantee is matching the award from non-Federal sources.